Examination of the Nature and Quality of Undergraduate Education in Science, Engineering and Mathematics

The objective of this project is to provide educational policy makers with a consensus of the views of working scientists, engineers and educators on topics and issues that should be addressed in charting a national effort to improve the nature and quality of undergraduate science, engineering and mathematics education. A principal element of this effort is a report prepared by a National Advisory Group that includes representatives of Sigma Xi chapters and clubs. The grantee is obtaining funds from other sources for this project that are greater than the funds provided by the NSF award.